International Workshop: Methods for Macromolecular Modeling

Schlick
0071877
The investigator and her colleagues organize a
multidisciplinary workshop on methods for macromolecular
modeling. The aim is to bring together both developers of
computational tools for biomolecular simulations and those
biological and chemical scientists who use computer modeling to
study macromolecular problems. The workshop highlights recent
advances in simulation techniques, most notably in the areas of
conformational sampling, fast electrostatics, molecular dynamics
integration, and quantum-mechanical calculations, that are having
significant impact on structural biology. It surveys developments
in algorithmic approaches, hierarchical spatial representations,
and improved computing platforms that continue to enhance the
reliability of macromolecular simulations and increase their
applicability and relevance to biomolecular research. The topics
highlighted are: (1) new methods for long-term molecular dynamics
simulations; (2) conformational sampling: equilibrium and
nonequilibrium processes; (3) multiscale modeling; (4)
quantum/classical mechanics; (5) fast electrostatics; and (6)
applications to enzyme catalysis, DNA modeling, and DNA/protein
systems. The workshop is held at the Courant Institute of
Mathematical Sciences at New York University on October 12-14 and
co-sponsored by SIAM (Society for Industrial and Applied
Mathematics), as part of SIAM's new Activity Group in the Life
Sciences, as well as by National Science Foundation programs in
Applied Mathematics, Computational Mathematics, Theoretical and
Computational Chemistry, and Molecular Biophysics.
Computational methods are increasingly being recognized as
valuable tools for the study of biomolecular structure and
function. The interdisciplinary nature of biomolecular
computational approaches is largely driven by the many important
practical applications in the field, such as drug design,
biomedical engineering, and food chemistry. The workshop program
provides a timely and unique opportunity for close interaction
and scientific exchange among biomolecular researchers, computer
scientists, and applied mathematicians. In the era of integrative
science, such synergy kindles new ideas and helps educate young
scientists for cross-disciplinary research at the interface of
computational science and biology. The meeting brings researchers
abreast of current developments in algorithms and computational
methods. It also highlights critical problems in structural
biology and new application areas, and it fosters
interdisciplinary collaborations. The results of the workshop are
disseminated through the collected scientific articles by the
invited speakers, which will be published in Springer Verlag's
Lecture Notes series in Computational Science and Engineering
(LNCSE). These tangible records, in addition to a carefully
designed program, are expected to serve the community by
educating junior scientists at disciplinary interfaces,
stimulating new ideas in computational techniques for
macromolecular modeling, and identifying key areas for future
research.